Poisson Structures and Lie Theory

Abstract for Proposal No. 0105195 by Jiang-Hua Lu

In this project, the PI will continue
to develop Poisson Morse theory, the theme of which is to
use Poisson structures to study the topology of the underlying
manifolds. She will also study a moduli space of a class
of Poisson structures, which is closely connected to semi-simple
symmetric spaces and their compactifications.

Poisson structures first arose in the 19'th century in the
study of classical mechanics. Nowadays Poisson geometry is
being influenced by and has applications in
theoretical physics such as string theory. In the same spirit,
this proposal is about the rich connections between Poisson geometry and
various other fields of mathematics and mathematical physics, such
as topology, Lie theory, Hopf algebras, and integrable systems.
It also has applications in control theory and robotics.